Development of Robust, Efficient and Highly Accurate Numerical Methods Based on Godunov-Type Central Schemes

Development of modern technology requires robust, efficient and highly
accurate numerical methods for solving time-dependent partial
differential equations, including multidimensional systems of hyperbolic
conservation laws, balance laws, convection-reaction-diffusion equations
and related problems. A family of simple, universal and high-resolution
finite-volume central schemes has been recently offered as an appealing
alternative to more complicated and problem oriented upwind methods.
The main goal of the project is applying the central schemes to various
multi-phase and multi-fluid flow models, the Saint-Venant system of
shallow water equations (which describes flows in rivers and coastal
areas), multi-layer shallow water equations (arising in oceanology),
models of transport of pollutant in shallow water, several chemotaxis
models, reactive flows (in particular, the models describing stiff
detonation waves), shallow water equations on a rotating sphere,
heterogeneous elasticity, granular material flows, dusty gas models
(which describe volcanic eruptions), and others. Naturally, these
applications, especially in the cases of high space dimensions, complex
geometries and moving boundaries/interfaces, require development and
implementation of additional numerical techniques such as different
adaption strategies, hybridization with Lagrangian-type methods,
accurate and efficient operator splitting, numerical balancing between
the terms that are balanced in the original system of partial
differential equations (development of well-balanced schemes), and
others that will be in the focus of the proposed research project.

Central schemes have proved to be a reliable and robust tool for solving
multidimensional systems of partial differential equations that describe
a variety of fundamental conservation laws in fluid mechanics, gas
dynamics, geophysics, meteorology, magnetohydrodynamics, astrophysics,
multi-component flows, granular flows, reactive flows, semiconductors,
non-Newtonian flows, geometric optics, traffic flow, image processing,
financial and biological modeling, differential games, optimal control,
and many other areas. However, the models used in most practical
applications are more complicated than just hyperbolic systems of
conservation laws, and therefore central schemes may only serve as a
basis in designing robust, efficient and highly accurate numerical
methods. This project is aimed at developing a series of supplementary
techniques that are essential for the extension of applicability of
central schemes to many practically important problems, some of them
are currently out of reach because the existing numerical methods are
either too inefficient/inaccurate or not applicable at all.